Travel grant for the Yale Mintz Memorial Symposium on Climate and Climate Change

This award provides travel support for three invited speakers for the Yale Mintz Memorial Symposium on Climate and Climate Change which will be held in Jerusalem, December 28-31, 1992. The topics for the symposium spans a broad spectrum of climate research areas, in keeping with the scientific interests and breadth of Dr. Mintz.